NSF-CNPq Collaborative Research on Design Environments for Application-Specific Programmable Processors

This research is on embedded systems design tools for building custom
application-specific instruction processor (ASIP) architectures that are no
bigger, or no more complex than necessary. Developing an ASIP, not only
requires hardware design, but also requires the use of a set of evaluation
tools such as an assembler, compiler and simulator. This investigation uses
a processor description to serve as a common starting point for the
development of these tools, as well as for hardware synthesis. The ISDL
language, being developed at MIT, for exactly this purpose is being used in
developing a complete software development environment, as well as hardware
generation. The simulator is used to obtain clock cycle estimates on
application code, and to evaluate the overall architecture performance.
Synthesis of processor datapaths enables hardware generation and provides
accurate, cycle-time estimates. To support software compilation, a
retargetable assembler, code generator and optimizer will be developed that
receive as input both a machine description in ISDL, and the program to be
compiled onto the described machine. New optimizations to produce code of
the highest quality in a reasonable amount of time are being evaluated. The
base of our retargetable compiler is SPAM, an embedded compiler framework
that has been developed by researchers at MIT, Princeton and UNICAMP,
Brazil. In many cases, application code is not written in high-level
programming languages, and it is necessary to deal with assembly or legacy
code. Thus automatic methods for optimized binary-to-binary translation are
being investigated. To do this, the legacy binary/assembly code is
decompiled to intermediate forms used by our compiler infrastructure and
then using the optimizing compiler technology to generate high-quality
assembly for the target architecture.